Mathematical Sciences: RUI: Nonsingular Ergodic Theory

Professor Silva will study nonsingular joinings in ergodic theory. Nonsingular joinings, a concept introduced by D. Rudolph and studied previously by Silva and Rudolph, will play a pivotal role in Silva's study of nonsingular infinite measure- preserving transformations. This project involves research in ergodic theory. Ergodic theory in general concerns understanding the average behavior of systems whose dynamics is too complicated or chaotic to be followed in microscopic detail. Usually ergodic theory involves a dynamics which preserves a natural probability measure. Professor Silva's research concerns systems where this nice property fails to hold.